SHF: Small: Computer Architecture for Scripting Languages

The goal of this work is to speed-up the execution of the
most popular programming languages of the internet, namely Scripting Languages
such as JavaScript and Python. These languages are easy to use, because
they do not require declaring all the variables. However, this makes them very
hard to compile efficiently. In this work, the principal investigator will design
processor hardware that is specifically equipped to help speed-up
these languages. Given the importance of these languages for
web development, effective techniques to speed-up their execution
are fundamental for the continued development of the
web infrastructure. Such development is crucial to our
society's efficiency, competitiveness, and wellbeing.

The principal investigator will focus on several techniques.
One of them is using speculation support to execute the most likely
execution path of the codes, and undo the execution if another path
was taken instead. The other technique is prediction, to predict which
parts of the code will be executed. Finally, the third technique is reuse, where the
processor will keep enough state in its structures to reuse
it across invocations of the same functions.